Spatial Based Integrated Assessment of Emergency Preparedness, Response and Recovery for the Kocaeli (August 17, 1999) and Duzce (November 12, 1999) Earthquakes

Time sensitive data and field information, records of constructed facility performance, and institutional action related to emergency response and recovery during the Kocaeli (August 17, 1999) and Duzce (November 12, 1999) earthquakes will be collected and organized under a spatially based framework. The research work will be implemented through the coordinated effort of teams of U.S. and Turkish scientists, engineers and earthquake professionals. The research work is part of a larger research program with an overall long-term objective to develop a spatial based analytical approach to facilitate the integrated assessment of emergency preparedness, response, and recovery for earthquakes.